Summer School on Parallel Numerical Methods for Partial Differential Equations

Stanescu
DMS-0810890

This project helps support U.S. participants in the 2008
Rocky Mountain Mathematics Consortium Summer School. The school
educates graduate students and junior faculty on the recent
developments in computational methods for partial differential
equations. This topic is of major importance in applied
mathematics and is key in developing a better understanding of,
and prediction capability for, complex physical systems. Topics
to be covered at the intensive two-week summer school include:
numerical methods for time-dependent problems, nodal
Discontinuous Galerkin Methods (theory and implementation),
high-accuracy and spectral element methods on structured and
unstructured meshes, introduction to parallel computing and
high-performance computing on present-day architectures, and
various applications such as fluid flow and weather prediction.
The lecturers include Jan Hesthaven (Division of Applied
Mathematics at Brown University, and Director of the Center for
Computation and Visualization), Amik St-Cyr (National Center for
Atmospheric Research), Henry Tufo (Colorado University-Boulder
and National Center for Atmospheric Research), and Tim Warburton
(Rice University).

The school has an impact on the U.S. maintaining its
leadership role in computational science, by equipping U.S.
graduate students with an understanding of the latest
computational methods, preparing students to be able to perform
parallel computations on developing architectures, and enhancing
their understanding of the important role that mathematical
modeling and simulations plays in science. The summer school is
held just prior to the thematic year-long program on
Computational Geosciences at NCAR, and thus prepares graduate
students and junior faculty to participate more beneficially in
this program. This project also has a large impact on math and
science education in Wyoming, as some of the speakers and
participants are guest lecturers at the local workshop "Thinking
and Doing Math and Science with Engineering," a program that
presents Wyoming K-12 math and science teachers with feasible
ways to make mathematics and science more pertinent and exciting
to their students.